Advanced Computational Methods to Predict Protein Secondary and Tertiary Structure.

The long-term objective of this project is to predict the final, tertiary structure of a protein given its amino acid sequence. Protein folding is the final step in translating the genetic message encoded in the DNA into a functional product. This structure is very specific: the mutation of a single amino acid residue in one protein can cause transformation or eliminate viability of an otherwise healthy cell. Although a very large number of protein sequences have been determined, only several hundred protein structures have been solved to atomic resolution. Because the three-dimensional structure of most proteins is determined by the amino acid sequence, it must be possible to predict this structure from the primary sequence. This award investigates several unique approaches to this prediction problems: determination of protein secondary structure using novel neural net and artificial intelligence techniques, determination of the tertiary structure of omega loops based upon amino acid rotamer libraries and constraints built into the structure of the omega loops themselves, and prediction of hydrophobic core residues in proteins.